Novel Denitrification-Enhanced Fermentation Technology: Rhamnolipid Production by Pseudomonas Aeruginosa

Dissolved oxygen is frequently the limiting factor for cell growth in aerobic fermentations, particularly when foaming (surfactant-like bioproducts) and/or shear sensitive cells prevent taking remedial action. Microorganisms can accept oxygen from other oxidizing agents, e.g., nitrate ion, and the process in termed anaerobic respiration. The goal of this modest SGER proposal is to demonstrate that nitrate-assisted respiration will facilitate the fermentation of glucose to commercially useful rhamnolipid surfactants by supplementing the normal oxygen respiration process. Pseudomonas aeruginosa which utilizes nitrate as an oxygen source, converts it to the benign N2 which should not inhibit the fermentation. The hypothesis is that the "denitrification" process can be shown to be a useful aide to a broad range of industrial fermentations if the process is properly controlled. New. limiting nutrients will be determined under the anaerobic respiration conditions and changes in the microbial metabolism, including the key product, will be studied.